8th International Congress of Human Genetics, Washington, DCOctober 6-11, 1991.

This project submitted by the American Society of Human Genetics, provides partial support for the scientific program of the 8th International Congress of Human Genetics to be held in Washington, DC, October 6-11, 1991. These Congresses, convened every five years since 1956, provide an excellent forum for the presentation of fundamental research results in human genetics to the international community of scholars in this rapidly advancing field. The primary purpose of the Congress is to enhance the body of knowledge in human genetics through the exchange of information that will take place. This Congress comes at a most propitious time when important advances in basic molecular genetics are being incorporated into the practice of human genetics. The obvious potential generated by such powerful analytical techniques as those employing recombinant DNA, DNA- and chromosome-mediated gene transfer, flow cytometry, polymerase chain reaction, and homologous recombination indicate this to be a particularly opportune time for such as international meeting. It should be noted that the extensive international collaboration in human genetics which presently exists will continue to develop as dictated by complementary expertise in different areas for the most economical and efficient use of limited scientific resources.